Curriculum Development for Science Teacher Preparation

9354051 Gadson Curriculum Development for Science Teacher Preparation A consortium has been formed to design specific approaches to improving the quality of undergraduate science teacher preparation and increasing substantially the quality and number of Black and Hispanic teachers in science. The consortium will design fresh, comprehensive, and coordinated approaches to reform science teacher preparation involving intra-institutional and inter-institutional collaboration. Faculties in the departments of biology, chemistry, physics, mathematics, and science education from Florida A&M University, University of Florida, University of South Florida, Bethune Cookman University, and Florida Memorial University, along with lead science teachers from Leon, Dade, and Volusia School Districts, will convene for two weekends. They will develop an articulated program model for a four- year comprehensive curriculum for teacher preparation in science education in the areas of biology, chemistry, and physics at the five major institutions. The program will be characterized by interdisciplinary experiences, use of new pedagogies, and clinical experiences. The curriculum model will be disseminated throughout the U.S. through newsletters and professional journals. ***y